Research Experiences for Undergraduates in Chemistry at Miami University at Oxford (REU Site)

9322137 Makaroff Miami University @ Oxford Dr. Chris A. Makaroff and other members of the Chemistry Department of Miami University at Oxford are being funded for a Research Experiences for Undergraduate students site in Chemistry. For the period 1994-6, nine undergraduate students will spend twelve weeks each summer actively engaged in a variety of research projects. Projects cover the areas of analytical, biochemistry and organic. The students will be drawn nationally.